Acquisition of an X-ray Microscale Computed Tomography Imaging System

Abstract- Miller CTS-9724315 An X-ray microscale computed tomography system is acquired. This will be used for research in advanced materials processing, failure analysis of advanced materials, multiphase particulate technology, microelectromechanical systems, fault mechanics and fluid transport, bone architecture and multilayered ceramic composites.